Conference on Groupoids and Stacks in Geometry and Physics

Abstract

Award: DMS-0406368
Principal Investigator: Ping Xu

The proposal is to partially support a five-day workshop on
"Groupoids and Stacks in Physics and Geometry", to be held at the
Centre International de Rencontres Mathematiques (Luminy, France)
from June 28 to July 2, 2004. The workshop is organized by PI
with Kai Behrend from the University of British Columbia,
Canada. One objective of the proposed workshop is to bring
together the groupoid community (consisting of both differential
geometers and operator algebraists) and the stack community, in
order to encourage more interaction and cross-fertilization
between these fields. PI also wishes to bring to the workshop
physicists working on quantum field theory and string theory,
since physics has been a steady source of ideas in the
aforementioned subjects.

Groupoids/stacks is a mathematical notion which arises naturally
in order to study symmetries of objects such as finite parts of a
crystal. It is related to mechanics, physics, and geometry. The
subject may also have potential applications to biology. There
are many bright young people working in these subjects around the
world and this workshop will be a great opportunity to bring
U.S. researchers, especially young people, to exchange their
ideas with their international colleagues and to broaden their
perspective. PI anticipates inviting many mathematicians at the
postdoctoral and graduate student level (from the United States,
Africa, Canada, and Europe) to the workshop.